Behavior of Large-Scale Dynamics

9803753
Levermore

This proposal is comprised of six otherwise disparate projects with the
unifying theme of investigating how collective large-scale behavior arises
in multi-scale dynamical systems. The projects are: Zero Dispersion
Limits of Nonlinear Wave Equations, Macroscopic Lattice Dynamics, the
NLS Limit of the CGL Equation, Moment Closure Hierarchies for Kinetic
Equations, Numerical Schemes for Hyperbolic Systems, and Shallow-
Water Models. From a physical perspective this proposed effort could be
viewed as a study of nonequilibrium statistical mechanics. But it is more
than that, for it strives to discover and study new nonlinear phenomena
that could impact the way physical, geophysical, and biological models are
developed and simulated.

New technologies are entering regimes in which traditional mathematical
models are inadequate. For example, quantum mechanical effects play a
central role in the emerging nanoscale semiconductor technology. These
effects are absent from traditional device models. Including them often
leads to models with "small dispersion." Such models exhibit large-scale
behaviors that are not understood and are hard to simulate because they
result from collective smaller-scale phenomena. Current mathematics is
not up to the task of describing or simulating such things adequately. The
first and second projects of this proposal address the development of
mathematics that can do the job. The other projects of the proposal
address the need for other mathematical developments that would impact
nanoscale semiconductor design, hypersonic flight, epidemiological
models, ocean circulation models, and other technologies.